Effects of Topographic Boundary Heterogeneity on Earth's Core Dynamics

Researchers have long assumed that Earth's core processes occur within
a nearly perfect spherical shell and that this condition is sufficient
to explain most of the geodetic and geomagnetic observations. However,
seismic investigations and mantle convection simulations suggest that
the core-mantle boundary contains variations in shape and temperature,
creating a heterogeneous boundary. Recent models suggest that boundary
heterogeneities may control both the large-scale generation of the
Earth's magnetic field (e.g., Christensen and Olson, 2003) and the
exchange of angular momentum between the mantle and core (e.g., Hide,
1969; Jault, 2003). In fact, the effects of heterogeneous boundaries
may be one of the most important controlling factors influencing
Earth's core processes. However, there are few laboratory experiments
that have been conducted to study the effects of thermal heterogeneity
(Sumita and Olson, 1999; 2002) and none to study the effects of
topographic heterogeneity.

In this study, the investigators will measure the effects of heterogeneous
boundary topography on core flows, using coupled laboratory and numerical
experiments. The results will allow a test of whether core flow can
become locked in place by topographic bumps. They will also use our
results to estimate the viscous and pressure torques at the core-mantle
boundary, which affect the rotation of the Earth and variations in the
length of day (Jault and Lemouel, 1989, 1999; Kuang and Bloxham, 1993;
Kuang and Chao, 2001).